Development of Neuronal Excitation - Secretion Coupling and Its Regulation by Target

The brain, spinal cord and nerves are made up of individual cells including the type called nerve cells or neurons. For the nervous system to function, neurons have to communicate with each other and with the cells they control such as muscle cells. The most important type of communication is via secretion of chemical messengers called neurotransmitters which can excite or inhibit other cells. Most secretion of neurotransmitters requires that calcium, which is present in the fluid which surrounds cells, enter the neuron at a site just prior to secretion. This calcium enters the neuron through structures called channels. Since neurons have many kinds of calcium channels, and since many substances in the nervous systems can control neurotransmitter secretion by affecting calcium channels, it is important to know which types of calcium channels directly affect or are coupled to transmitter secretion. It is also known that cells around the neuron can affect which channels are coupled to secretion at different times of development. Dr. Gray will study the relationship between specific types of calcium channels and the secretion of the neurotransmitter acetylcholine in neurons during development, using direct measurement of release of radioactively-labeled acetylcholine and electrical recording of calcium influx through channels. The mechanism by which cells such as muscle cells affect coupling between these types of channels and acetylcholine secretion will also be studied. The control of secretion at synaptic sites in the nervous system is of fundamental importance to the understanding of brain function.***//